Tests of fundamental symmetries with atoms and molecules

This proposal focuses on theoretical aspects of tests of fundamental symmetries with
atoms and molecules. It has three interrelated components: (i) atomic parity non
conservation (PNC), (ii) CP-odd (T,P-odd) polarizabilities, and (iii) nuclear anapole
moments. All these projects are driven by searches for new physics, such as
supersymmetry, beyond the standard model of elementary particles. They rely on
exquisite experimental sensitivity to minute effects of fundamental forces on atomic and
molecular structure. The derived constraints are competitive and, at the same time,
complementary to the information gained from particle colliders.